StarDate: Black Hole Encyclopedia and Enciclopedia de Agujeros Negros

Abstract
Proposal Number 0935841
PI: Karl Gebhardt

This project is making enhancements to two existing websites, the Black Hole Encyclopedia and the Spanish version Enciclopedia de Agujeros Negros. The original websites were created by the PI under his NSF CAREER grant. The enhancements include 20 additional black holes in the Directory section, new listings in the Popular Culture section, profiles of six leading black hole researchers (including the PI), audio podcasts, a new section on the history of black hole research, and extensive graphics and animations. The evaluation of the website is expected to add to the informal science education community's knowledge of how the internet is being used to support science learning.